Support for Travel and Communications of the Representative to the Submarine Arctic Science Program

9531768 This award will support the travel of the principal investigator in his role as the NSF-designated member of the Science Steering Committee established under an interagency Memorandum of Agreement to facilitate the use of U.S. Navy submarines for scientific research in the Arctic. ***